U.S.-Korea Long-Term Visit for Cooperative Research on the Kinetics of Catalyst Sintering

This proposal requests funds to permit Dr. Hong H. Lee, Department of Chemical Engineering, University of Florida, to pursue with Dr. Sang Heup Moon, Department of Chemical Engineering, Seoul National University, during a five-month visit to Korea, a program of cooperative research on the kinetics of catalyst sintering. The collaborators will investigate the kinetics of sintering that accounts for the effects of support pore size on the sintering rate of supported catalysts. Results of this investigation will be utilized in the design of catalyst pellets to maximize catalyst life. In addition to the importance of the project as a basic research study, this research may have important applications in industrial catalysis, where the effectiveness of the catalyst is inversely related to the extent of sintering. This project will add an international cooperative dimension to Dr. Lee's ongoing research at the University of Florida supported by the National Science Foundation's Kinetics and Catalysis Program under Grant No. CBT8601884. The collaborators are highly respected scientists in the field of this research. Dr. Lee is primarily concerned with developing the kinetics of sintering for porous, supported catalysts, while Dr. Moon's primary research interest is the design of support so as to minimize sintering and maximize catalyst life in fixed-bed systems. The present project will allow them to combine their talents and interests for mutual benefit. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF).